Rapid Prototyping System

9451371 Hudgings The broad goals of career education, education for life and employment, form the core of the Computer Integrated Manufacturing (CIM) curriculum. The CIM curriculum provides students with the education and skills to respond to the present and future needs of business and industry. The addition of a Rapid Prototyping System to the CIM program is critical to the continued success of its graduates. Therefore, Camden County College is proposing the acquisition of a Rapid Prototyping System which will enable students to fully integrate Computer Aided Design (CAD) to Computer Aided Manufacturing (CAM) to the Computer Numerical Control (CNC) machining in an environment which mirrors current rapid prototyping systems. Systems such as this minimize the "art to part" time required in developing a new project. This project addresses an industry need for well educated technicians in the manufacturing technology field.